Geometry of Linear Systems on Curves

This proposal concerns the geometry of algebraic curves, both in the
abstract and in projective space. Over the last few decades, we have
learned a great deal about how abstract curves may be embedded in
projective space; in particular, we know when a general curve of given
genus can be embedded in projective space as a curve of given degree.
But we still don't know as much about the geometry of the embedded
curves: what sort of equations define them, and what degrees and genera
occur. These questions are intriguing, and have many potential
applications. For example, understanding the polynomials that define
the embedded curves -- in particular, resolving the Maximal Rank
Conjecture -- will have consequences in turn for the geometry of moduli
spaces of abstract curves.

Algebraic curves have been the object of study for more than 300 years.
In some sense, the subject started when mathematicians first moved from
studying polynomial equations in one variable -- which have just a
finite number of solutions -- to equations in two variables, whose
solutions form a curve. The study of these geometric objects has been
the main source of our understanding of the algebra of polynomial
equations. It has led to many advances in mathematics, both in
algebraic geometry and many other areas of mathematics, such as
topology, number theory, complex analysis and mathematical physics.